Surface Water Reservoir Ages and Paleoventilation during the LGM and Deglaciation

Summary: This project will determine subsurface reservoir ages of waters around New Zealand by dating planktonic and benthic foraminifers associated with tephras in marine cores. The study will focus on dating samples associated with the Kawakawa tephra (ca 22,590 14C yr). The Kawakawa ash is easily identified and is widely distributed which will allow dating of intermediate and deep waters along the tephra isochron. Trace element measurements on foraminifer shells and stable carbon isotope measurements will also be done as a cross check on circulation changes derived from the 14C age distribution.